I-Corps: Oxygen-controlling Cryogels for Cell Culture Applications

The broader impact/commercial potential of this I-Corps project is to explore the uses of a new platform useful for studying cell cultures with different oxygen levels. Oxygen, an important factor for cell life and development, is typically not controlled in conventional culture conditions, but for specific studies low oxygen levels must be maintained. For instance, low oxygen levels help researchers study diseases, human tissues and even biological processes. Other processes, such as disorders of the digestive system, some infectious diseases, and the human microbiome, are studied with no oxygen. Current technologies for performing these cell culture techniques are either inadequate, burdensome or too expensive for widespread use. The proposed technology is a compact and affordable oxygen-controlling platform for cell cultures.

This I-Corps project is based on the development of an oxygen-controlling cryogel cell culture platform. Cryogels are an advanced type of hydrogels with a unique set of physical properties, including an interconnected and microporous 3D network, shape memory features, and are syringe injectable. Low oxygen tension (i.e., hypoxia) is associated with some tissues and diseases, and anaerobic cell culture is essential for studying gastrointestinal disorders, infectious diseases and the human microbiome. The proposed technology is a compact and affordable oxygen-controlling cryogel platform that creates oxygen-controlled conditions directly within the cellular environment.